An Inositol 1,4,5 - Trisphosphate - Dependent Protein Kinase

This is a Career Advancement Award to support Dr. Cunningham's research on a novel IP3-dependent protein kinase which Dr. Cunningham has discovered in erythrocyte membranes. This is the first report of a direct role for IP3 in protein phosphorylation, and as such is potentially extremely important. Dr. Cunningham has proposed a model which links IP3-dependent protein phosphorylation with the known signal-transducing function of IP3, namely the opening of calcium channels. If successful, the purification and characterization of an IP3- dependent protein kinase is anticipated to have significant impact on the field of signal transduction, as well as significantly enhance Dr. Cunningham's career.